Development of Nonintrusive Optical Techniques for Study of Sediment Transport

A nonintrusive optical technique is to be developed for experimental measurements in sediment-laden flows. Flow velocities, particulate velocities, and sediment concentrations are to be determined. The instrumentation will be used in a sediment flume to determine flow characteristics close to the fluid-sediment bed interface. Increased resolution and refinement in the measurement of turbulence and sediment characteristics for flow over movable sediment will permit more realistic modeling and prediction of flow rates, erosion, and sediment transport in rivers, channels, and canals.